Mathematical Sciences: NSF-CBMS Regional Conference on Empirical Processes, Theory and Applications; June 13-17, 1988; Iowa City, Iowa

The theory of empirical processes contains a collection of powerful techniques that have potential application in wide areas of Mathematical Statistics and Econometrics. David Pollard of Yale University will give a series of ten lectures on this theory and its application, which will form the core of this conference.